Innovative Curriculum Applications in the Community College Mathematics Classroom

Project will move West Valley College's successful prior efforts in the computerization of the curriculum into a more advanced stage. The mathematics faculty members have been forward looking in their extensive use of the previously available computing devices in their instructional program. They are now ready to undertake an expansion that will incorporate important new technologies, i.e., computer graphics and symbolic algebra systems.